Support of the U.S. Step Coordination Office

9312244 Teague This award is for continued support of the U.S. Solar Terrestrial Energy Program (STEP) Coordination Office (USSCO). The USSCO interacts with the international space science community for the purpose of (1) collecting and disseminating STEP-related information and data, (2) coordinating joint campaigns for data acquisition and analysis, and (3) organizing professional society meetings and special sessions. USSCO activities are crucial for coordinating the various federal agency activities related to STEP with the international scientific community. It also facilitates communication of the STEP activities to the U.S. community. ***